Collaborative Research: The Smart Playground: Computational Thinking through Robotics in Early Childhood

Technology and computing are increasingly central in the lives of children, and building foundational skills in computational thinking in the early years is a national imperative. Young children can learn best through play and in educational environments that are personally meaningful to them. This Discovery Research preK-12 program (DRK-12) project will co-create and study outdoor robotic-augmented playgrounds and a corresponding series of classroom lessons. The activities will be co-designed with local families and educators to engage young children (kindergarten) in developing computational thinking skills in a screen-free, physical environment. We will develop hand-held sensors and actuators that the students can use on existing playgrounds in partner schools. These devices will allow young children to program their playground to interact with them in different ways and create their own games as well as play games we develop. Both by programming and by playing the games, the children will learn foundational computational thinking skills and a physical, hands-on, screen-free manner. Further, through co-designing with local families and educators, we will create activities that are personally meaningful to the students. Through research and evaluation, we will examine whether exposure to these activities has an impact on the development of computational thinking in young children. This project will contribute to the emerging field of robotics in early childhood education by addressing the need for new approaches to teach with and about technology in a developmentally appropriate way. This work will increase awareness of early robotics, develop children’s computational thinking skills and STEM confidence, and integrate learning opportunities throughout children’s experiences in playgrounds, classrooms, and public spaces. The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering, and mathematics (STEM) by preK-12 students and teachers through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

At the core of this project, we aim to create and test innovative, hands-on, screen-free educational approaches for bringing STEM learning experiences to early learners. We will co-design, augment, and evaluate the resulting hardware and activities to promote computational thinking with approximately 500 kindergarten students and their teachers and families from the Santa Ana, CA school district. We will test the concept in pre-schools and kindergartens in Massachusetts as well. Using a Design-Based Implementation Research approach and a variety of participatory design techniques, this project will create several prototypes of the hand-held hardware and corresponding classroom activities. This work is guided by the following research questions: 1.) What is the impact of physically engaging with our hardware on the playground on children’s computational thinking? 2.) How do varied design elements support the development of different aspects of computational thinking among children? 3.) In what ways do children, teachers, and families in Santa Ana become involved during the co-design activities? A wide range of quantitative and qualitative data governing student gains in computational thinking during baseline, implementation, and follow-up phases will inform the iterative process of design-test-redesign. The project will also collect, transcribe, and analyze observations, interviews, and meeting records to develop thematic insights into culturally sustaining designs and re-design of the hardware elements. Ultimately, this project will result in an evidence-based set of prototypes and lessons that promote computational thinking. Designs and lessons will prioritize usable and scalable materials to create playful computational thinking opportunities in classrooms and playgrounds across the country and the world.